Mechanisms of Air-Sea Gas Exchange

A series of laboratory experiments will be conducted to investigate the structure of the molecular boundary just beneath the air-sea interface and the effects of wave and surface active films on mass exchange processes. Newly developed chemical, optical aand image- processing technologies will be used to make the necessary detailed observations.